Models and Methods for Robust and Conic Optimization

Title: "Models and Methods for Robust and Conic Optimization"

Abstract:
Uncertainty is an inevitable feature of many decision making
environments. On a regular basis, engineers, economists, investment
professionals, and others need to make decisions to optimize a system
with incomplete information and considerable uncertainty.
Understanding, quantifying, and managing uncertainty is critical
to the success and effectiveness of their decisions.
Robust optimization refers to the modeling of optimization problems
with data uncertainty with the objective of
obtaining a solution that is guaranteed to
perform well under all possible realizations of the uncertain parameters.

This project will introduce novel approaches
for the characterization of robustness in uncertain systems
and develop efficient and reliable optimization algorithms for
identification of robust solutions.
In particular, the project will focus on (i) developing methods to
identify solutions that are ``relative robust'', i.e., solutions that
are good in each scenario, where the quality of the
solution is measured relative to the best solution of
each scenario; (ii) developing new models and methods for
``adjustable robust optimization'', i.e., for problems with
uncertainty where a subset of the decision variables can be
adjusted after some of the uncertain variables are
observed.

In many cases, robust optimization formulations are expressed
as the problem of optimizing a linear function over a set defined
by linear equalities and cone membership constraints, a so-called
conic optimization problem. Implementation efforts will
include the development of structure-exploiting algorithms
for the solution of large-scale conic optimization problems.
In particular, problems with fixed variables, cone intersection
constraints, and quadratic objectives will be studied.
The resulting algorithms will be carefully implemented and
the software will be freely distributed.

Robust and conic optimization formulations are used to model
a wide array of applications in many diverse fields.
For example, robust optimization problems arise when some
of the input parameters of a given optimization problem
are unknown or uncertain, which is
common in finance, economics, and engineering models.
Conic optimization problems are encountered in truss design,
control and system theory, statistics, eigenvalue optimization,
antenna array weight design, and mathematical finance.
Given their wide applicability, the progress achieved through this
project in solving these problem classes more efficiently
and effectively, will benefit activities in many of the
disciplines listed above. In addition, the project work
will be integrated into the PI's ongoing teaching, training,
and outreach activities through
(i) the CMU Summer Institute, (ii) the teaching of a
project-based course that benefits local industries and organizations,
(iii) "NEC: Give a Day, Make a Difference" program.